Interactions, Radiation and Acceleration of Energetic Particles in Solar Flares

One of the most important problems in the study of solar flares is the understanding of the mechanisms of particle acceleration. An essential step in the solution of this problem is the determination of the characteristics of the accelerated particles. The characteristics observed or inferred from flare radiation, however, are not those of the accelerated particles but are these characteristics modified through interaction with the flare plasma. The aim of this research is the detailed investigation of these interactions with ambient plasma waves, particles and macroscopic magnetic and electric fields. This work will find application also in the study of electrons in the earth's ionosphere and many other situations. The results from this analysis are used for study of the impulsive phase gamma-rays hard x-ray, microwave and type III flare radiation. Many of the details of interaction of energetic particles have been analyzed under previous grants. This grant will complete some of these and begin investigation of effects of the geometry of flaring loops and their homogeneities on the observable quantities. It is intended to concentrate on some statistical analysis of the observations and begin work on acceleration mechanisms, initially in a manner that will be a natural extension of previous studies.